Partnering to Prepare STEM Master Teachers for Michigan's Middle Schools

This Noyce Track 3 project aims to serve the national need of developing and retaining highly effective STEM master teachers. The role of teacher leaders is critical for improving the performance of students in STEM courses and increasing students’ interest in pursuing future STEM courses and careers. This project addresses that need by preparing teacher leaders to employ evidence-based methods to continually enhance their own effectiveness and help less experienced and novice teachers do the same. Additionally, this project will support 30 in-service integrated science and mathematics teachers throughout Michigan, by providing a proven, efficient pathway to train STEM teachers to serve as effective mentors and leaders in their schools through collaboration with other teacher leaders. The proposed project components will enable high-achieving practicing teachers to become grades 5-9 STEM teachers with extensive expertise in leadership skills and active learning instruction. These teachers will deliver long-term benefits to their schools and districts by providing mentoring and professional learning to their colleagues.

This project at Michigan Technological University, a STEM-dominant technological university, includes partnerships with Northern Michigan University, a primarily undergraduate institution known for expertise in teacher education, and high-need school districts in Michigan, Copper Country Intermediate School District, Kalamazoo Public Schools, Kentwood Public Schools, Marquette-Alger Regional Education Service Agency, Menominee County Intermediate School District, Midland Public Schools, and the Upper Peninsula Center for Educational Development. Project goals include the recruitment and preparation of 30 new STEM teacher leaders over six years for service in grades 5-9 in high-need schools within Michigan and provide an accessible track to earn their master's degree. The expected outcomes of this project are: development of 30 practicing science teacher leaders in high-need schools in grades 5-9; and development of an online master's degree designed for STEM teachers offered by two partnering universities. This project intends to ultimately improve the performance of students in STEM courses, increase students' interest in pursuing future STEM courses and careers, and serve as a model for partnering efforts in other states. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (a) To what degree does the project enhance teacher knowledge/implementation of NGSS pedagogical practices? (b) What evidence is there of student engagement? (c) To what degree does the project enhance teacher knowledge and self-efficacy related to teacher leadership? (d) What evidence is there that teachers are implementing teacher leadership practices? (e) To what extent does the project meet the implementation target of recruiting, supporting and retaining teachers? (f) To what degree do teachers and school administrators see an ongoing alignment between the project and their own priorities? (g) What (if any) implementation barriers exist? And, finally: (h) What elements of the project model can be sustained beyond the funding period? Western Michigan University will perform external evaluation. The evaluators will collect and review quantitative and qualitative data related to program implementation and the effect of project programming on instructional practices and leadership skills. The results of this project will be disseminated to enhance the field. This Track 3: Master Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.